9th annual Maine/Quebec conference on number theory and related topics

The 9th Annual Maine-Quebec Conference on Number Theory and Related Topics

The 2007 Maine/Quebec conference on number theory and related topics will
take place on September 29 & 30 at the University of Maine in Orono. This
conference is held annually, at l'Universite Laval in Quebec in even years
and at the University of Maine in odd years. By providing a forum for
number theorists from New England, Quebec and beyond to present and
discuss their research, the conference promotes interaction and
collaboration between Canadian and American number theorists.

This year we will emphasize two themes:
(1) Automorphic forms and representation theory,
(2) Analytic number theory as applied to classical zeta functions.
Plenary lectures on these themes will be given by James Arthur and Steve
Gonek, respectively. Approximately 20 other invited speakers will present
their work. The small scale of the meeting (with 30-40 attendees) makes
this a good opportunity for graduate students and young mathematicians to
interact with leading researchers.